Travel Support for the 2001 IEEE International Symposium on Information Theory

The IEEE International Symposium on Information Theory (ISIT) is held yearly at sites alternating between the U.S. and abroad. The 2001 Symposium will be held at the Omni Shoreham Hotel in Washington, DC, USA on June 24-29, 2001.

This proposal requests support for the travel expenses of ISIT participants from the U.S., Russia and Eastern Europe. These participants would be individuals whose papers have been selected for presentation at the Symposium, but who lack funds and would not be able to attend without travel support. It is proposed that the co-chairs of the symposium, Thomas Fuja and Prakash Narayan make the awards. The total amount requested is $40,000, split equally between U.S. and non-U.S. Participants; this is based on 40 U.S. awards (averaging $500 apiece) and 15 foreign awards (averaging $1333 apiece).